Contact Topology, Knots, and Heegaard Floer Theory

Abstract

Award: DMS-0805836
Principal Investigator: Olga Plamenevskaya

This proposal focuses on contact topology in dimension 3 and the
related version of knot theory, the study of Legendrian and
transverse knots. Contact structures on 3-manifolds encode subtle
topological information, and knots in contact manifolds (tangent
or transverse to the contact planes) have many additional
properties. The goal of this project is to better understand the
relation between and find new applications of various invariants
of contact structures and Legendrian and transverse knots. More
specifically, the PI will study various versions of the contact,
Legendrian and transverse invariants in Heegaard Floer homology;
she proposes to investigate knots via associated contact
manifolds, such as those obtained by surgery on Legendrian knots
and branched covers of transverse knots. A related part of the
project is to develop similar invariants in knot homologies
arising from quantum algebra (Khovanov and Khovanov-Rozansky
homology). An intriguing relation between Heegaard Floer theory
(defined via holomorphic disks) and the quantum algebraic knot
homologies exists outside of contact geometry; the PI proposes to
study this relation in presence of a contact structure. In
particular, in her previous work the PI suggested a transverse
knot invariant in Khovanov homology. The interplay between
Heegaard Floer and Khovanov homologies allows to use this
invariant to prove tightness of certain contact structures on
branched double covers of knots. Further progress on this project
could yield quantum algebraic tools for studying contact
structures in a more general setting, and would improve our
understanding of the relation between theories of a very
different nature.

The proposed research is on geometric topology, an area of
mathematics that studies shapes of curved spaces (manifolds) in
various dimensions. In dimensions 3 and 4, this can be thought
of as understanding the structure of space and space-time, and is
particularly interesting and important. The study of knots in
dimension 3 plays a major role in topology and has important
connection to other sciences (for example, DNA and certain
proteins can be knotted). The proposed project focuses on study
of 3-manifolds and knots in presence of a contact structure, an
object somewhat analogous to an electric field in physics.
(Historically, the study of contact structures was first
motivated by classical mechanics, optics and thermodynamics.)
Contact structures are important objects by themselves, but also
encode valuable information about the space they live in. In her
research, the PI plans to use tools and ideas from different
branches of mathematics such as geometry and quantum algebra. The
broader goals of the project thus include a better understanding
of the relation between these different branches, as well as new
results in and applications of the topology of contact manifolds.